Dynamic Assessment of Conceptual Knowledge

9450539 (SGER) Delclos The proposed project is an application of new expertise and new approaches to an "old" research topic. Consequently, it meets the criteria for a Small Grant for Exploratory Research, and it is of priorty in our effort to develop new, low-cost, effective models of assessment and instruction.